A Generative AI Approach for Uncertainty Reduction in High-dimensional Complex Systems

This project develops new mathematical and computational methods based on generative artificial intelligence (AI) to improve prediction and reduce uncertainty in complex scientific and engineering systems. Many important applications, such as atmospheric forecasting and energy system operations, rely on integrating mathematical models with incomplete and noisy observational data. Existing uncertainty reduction methods often struggle in complex nonlinear and high-dimensional settings due to their high computational cost and limited ability to accurately characterize uncertainty. This project advances the mathematical foundations of generative AI by developing efficient and reliable methods for integrating observational data with complex dynamical models. The research supports national priorities in AI and scientific computing by enabling trustworthy AI-driven tools for large-scale scientific prediction. Potential societal impacts include improved reliability in extreme weather forecasting, enhanced decision-making under uncertainty, and broader access to computationally efficient generative AI technologies for science and engineering. The project also supports workforce development through graduate and undergraduate training in computational mathematics, uncertainty quantification, and scientific machine learning, along with the development of educational materials and open-source software tools.

The project develops a training-free score filtering framework that integrates diffusion model-based generative AI with Bayesian data assimilation to reduce uncertainty in high-dimensional complex dynamical systems. Unlike standard diffusion models that require computationally expensive offline neural network training, this training-free framework constructs analytic score models derived from linear diffusion processes and approximates them using Gaussian mixture model structures. Eliminating neural network training improves computational efficiency, while the model-informed score representation preserves fine-scale physical information in simulated state ensembles. The research combines algorithm development with rigorous mathematical analysis to establish accurate, robust, and efficient state estimation methods for settings involving sparse, indirect, and heterogeneous observations. The resulting methodology will be integrated with modern numerical weather prediction systems and operational meteorological observation networks to investigate uncertainty reduction in hurricane forecasting and other large-scale scientific computing applications.